On a Reciprocal Tarry-Escott Problem, the Distribution of Roots of Polynomials Modulo a Composite, and Sieve Methods

DMS-0301282
Poonen, Bjorn M.
(Croot, Ernest S.)

Abstract

Title: On a Reciprocal Tarry-Escott Problem, the Distribution of Roots
Of Polynomials Modulo a Composite, and Sieve Methods

The Proposer's research project has three goals:
He wishes to finish working on his results and methods on the
Prouhet-Tarry-Escott problem, which he will write up in one or more papers;
he plans to continue and to write up in a paper his work
with an undergraduate on cryptology; and, he wishes to continue to develop
a new sieve method for determining the number of primes in thin sets of
integers. The proposer's work on the Prouhet-Tarry-Escott problem gives a
new method for constructing solutions to certain systems of diophantine
equations with many variables, and the method may lead to a solution of one
of more unsolved problems in this area. The work on cryptology centers around
showing that certain algorithms for attacking public-key cryptosystems, that
find low-height roots of polynomials modulo an integer q
(such as Coppersmith's method), cannot be easily improved.
Finally, the proposer plans to continue developing a sieve method
for counting the number of primes in a given set of integers, which allows
one to use additional analytic information (besides the usual data used by the
combinatorial sieve) about the set, in the hopes that the method will
lead to the solution of one or another known, difficult, unsolved problems
in prime number theory.

Since the time of the ancient Greeks, mathematicians have been trying to
understand how the prime numbers are spaced; that is, how does the distance
between consecutive prime numbers vary as one considers larger and larger
primes? Sieve methods were developed as a theoretical tool for answering
this type of question; however, there are many natural questions about such
spacings that they currently cannot answer. One of the proposer's
research goals is to finish developing a new sieve method which he hopes
to use to make progress on some of these unsolved problems. The proposer's
work on cryptology was motivated by research with an undergraduate on
a certain method (Coppersmith's algorithm) for attacking the
RSA cryptosystem, which is a procedure for sending secure data via the internet.
The proposer (and student) plans to continue his work
on a related problem in number theory, the solution of which would show that
this method of attack cannot be much improved. Lastly, the proposer plans
to continue his work on the Prouhet-Tarry-Escott problem. This problem is
a longstanding unsolved question in number theory, and proposer is
developing new methods to make progress on it and other, similar problems.